Building BRIDGES Within the Undergraduate Major in Computer Science

In this project, investigators from UNC Charlotte are building a software
infrastructure named ``BRIDGES" (Bridging Real-world Infrastructure
Designed to Goal-align, Engage and Stimulate) to transform student
experiences in computing education. The primary goal of the project is to
improve retention of CS majors, especially at the sophomore level. BRIDGES
facilitates a hands-on experience for solving traditional problems in computer
science using real-world information systems, such as Facebook, Twitter,
Google Maps, etc. BRIDGES is being integrated into two computer science
required courses, the senior capstone course and the sophomore level
data structures and algorithms course, enabling a senior-sophomore bridge.
Sophomore and senior students in these courses will partner in joint lab
sessions to utilize and create new extensions to the BRIDGES infrastructure
to support data structures programming assignments. Sophomores will act as
customers for the new tools and data sets created by seniors and use them in
their course programming assignments. In this manner, BRIDGES will create a
more connected student body by partnering sophomores and seniors, which
should lead to improved student retention and engagement. BRIDGES is
being built using open source and web technologies, promoting easy
dissemination. Two workshops on the BRIDGES system will be held,
involving educators from regional colleges and high schools, including
minority and underrepresented institutions. An additional workshop will be
held associated with a major education conference. Students from the STARS Alliance (an NSF funded Broadening Participation in Computing consortium) will be given access to the learning materials and infrastructure to incorporate into their outreach and teaching activities.